Oral Interviews of Principals Involved in the Bletchley Park Computer Development, 1941-1945.

Two of the major participants in the Bletchley Park work in breaking the World War II German High Command "Enigma Codes" are present at Virginia Tech during the Spring semester 1992. The University plans to conduct a series of four hour-long oral interviews of Dr. I.J. Good and Dr. Donald Michie concerning their involvement in the Bletchley Park activities, decryption and early computing developments during World War II, and their contributions to statistics, computing sciences and artificial intelligence since 1945. The principal investigator has arranged for experienced writers and professionals skilled in oral interviewing with computer pioneers to participate in this oral history project. It is expected that the resulting collection of archival material will result in several publications in the Communications of the ACM, the Annals of the History of Computing and other journals associated with the intelligence and statistics communities. Elements of the set of interviews will also be considered for inclusion in TV and Radio series. This award is for travel funds and subsistence during the interview period for the interviewers. Partial support is also being provided by Virginia Tech, the Virginia Academy of Sciences, the Association for Computing Machinery, and the American Statistical Association.//